Equivalence Classes in Pigeons and Rats

9222203 McIlvane A continuing interest in comparative psychology is the degree to which different species can perform different types of stimulus classification. Stimulus classes are demonstrable when (1) two or more physically dissimilar stimuli occasion the same behavior and (2) events that directly affect one class member also affect the other(s) indirectly. This project asks if rats can form one type of stimulus class, called a "contingency class," which may result when two or more stimuli covary in their relation to a common behavioral outcome (e.g., a food delivery). Contingency classes have been demonstrated in humans and birds, but not yet in rodents. A demonstration of these classes in rats would establish the generality of the relevant behavioral processes in relatively small-brained mammals. It would also permit further tests to evaluate whether or not rats can form a second type of class, an "equivalence class." Equivalence classes are higher-order, contextually determined classes that are thought to underlie relatively advanced cognitive capabilities. Such classes have so far been demonstrated only in humans, higher primates, and sea lions; the capacity of smaller-brained species to form equivalence classes is unknown.